Gordon Research Conference: Genomics & Structural/Evolutionary Bioinformatics to be held in the Summer of 2002, New Hampshire and California

Gordon Conferences have a long history of informal science exchange. This meeting seeks to bring together experimentalists in genomics with various kinds of computational and theoretical individuals to pose new problems and communicate recent advances. The focus of the conference is exploring venues of integration of structural information on genes and proteins with population genetics and evolutionary biology. The need and character of computational tools that will be developed will be part of the overall discussion. Encouraging the information exchange between two separate groups is a key part of the plan.